DLI-International: Metadata for Resource Discovery of Multimedia Digital Objects

Abstract

IIS-9905955
Lagoze, Carl
Cornell University
$0 - 12 mos. (Jointly funded by International Programs in the amount of $17000, and The Nat'l Edow. For Humanties in the amount of $6,589. Total award is $23,589)

Metadata for Resources Discovery of Multimedia Digital Objects

This is the first year funding of a three year continuing award. This project, HARMONY, is a three-way international partnership between Cornell University, the Australian Distributed Systems Technology Centre(DSTC) and the University of Bristol's Institute for Learning and Research Technology(ILRT). The joint work will be devising a framework to deal with the challenge of describing networked collections of highly complex and mixed-media digital objects. The work will draw together efforts on the RDF, XML, Dublin Core and MPEG-7 standards, and will focus on the problem of allowing multiple communities of expertise (e.g., library, education, rights management) to define overlapping descriptive vocabularies for annotating multimedia content.